Gokova Geometry/Topology Conference

Abstract

Award: DMS-0403096
Principal Investigator: Selman Akbulut

The Gokova Geometry-Topology Conferences are a series of annual
conferences held in Gokova, Turkey since 1992. The international
scientific committee selects topics over a wide range of geometry
and topology. Many of the participants are junior researchers or
graduate students, often making their first international
presentations.

This award supports U.S. participants in three years of meetings.
Up to date information on Gokova Conference programs and
schedules is available at http://www.math.metu.edu.tr/~gokova/.